A Toolkit for Conformational and Kinematic Analysis

The proposed research is directed towards the development of mathematical and computational tools for the geometric analysis of molecular conformation, kinematics and dynamics. The resulting algorithms and computer programs are expected to be of widespread utility to researchers in many areas of structural chemistry and biochemistry, including spectroscopists seeking to interpret their data in terms of a precise molecular model, stereochemists who need to find all conformers consistent with a given bond arrangement, molecular biologists attempting to predict protein and nucleic acid conformation, and theoreticians studying their dynamics. The overall approach combines established methods of conformational analysis based on distance geometry with one of the most important tools of modern theoretical physics: Clifford algebra. In previous publications, we have shown how distance geometry can be understood within the broader framework of Clifford algebra, and how the Clifford algebra of three-dimensional Euclidian space can be used to solve important problems in modern conformational analysis. We have also shown how the martix exponential and related matrix-valued functions can be used to compute the necessary transformations, and have developed efficient algorithms for them. Specific research activities planned for the award period include: (1) Conformational analysis in four dimensions, (2) Mobius sphere distance geometry, and (3) Kinematics of internal molecular motions.